Undergraduate Research in Elementary Particle and Accelerator Physics

This grant will initiate a Research Experiences for Undergraduates Site in the Physics Department of Wayne State University. Students will be recruited largely from colleges in the Greater Detroit area, and will spend part of the academic year at Wayne State in classes and lectures on experimental physics. They will then spend a summer at Cornell University participating in the REU Program there, as members of various research groups.